Laser Absorption Methane Isotope Analyzer

9360281 Kebabian Analysis of the stable isotopes in atmospheric methane samples can be used to identify local sources and to define the global budget of this radiatively important greenhouse gas. This proposal would develop a portable and less expensive alternative to isotope mass spectrometry for measuring 13CH4 and CH3D components in methane samples. The method is based on infrared absorption using a helium neon laser at 2999.24 cm-1. The laser line can be Zeeman shifted into coincidence with closely spaced line pairs of 13CH4 - 12CH4 and CH3D - CH4 so that both ratios may be obtained with a single instrument and sample. Phase I research will identify the exact line positions of these pairs and the laser line using tunable diode laser spectroscopy, and will establish the baseline parameters for evaluating the ultimate sensitivity of the technique. In Phase II, the prototype instrument will be constructed and intercompared with samples analyzed by mass spectrometry. ***